Topological Aspects of Chow Quotients and Moduli Spaces

DMS-0104600
Yi Hu

The investigator proposes to give topological constructions of
the Chow quotient by introducing moduli spaces of stable orbits
with prescribed momentum charges and moduli spaces of stable
action-manifolds, respectively. The introductions of stable
orbits and stable action-manifolds follow closely the idea of investigator's earlier work on stable degeneration of polygons.
Note that just like a stable polygon is a collection of ordinary polygons, a stable orbit is a collection of ordinary orbits. The connections from stable orbits and stable action-manifolds to the corresponding Chow cycles are to be established by moment map.
Next, he also attempts to interpret the Uhlenbeck compactification
as a topological analogy of a Chow quotient. In the same vein,
the investigator proposes a moduli problem for stable tuples of homogeneous polynomials of a fixed total degree in two variables.
The investigator anticipates that the resulting moduli space is
the smooth compactification of the variety of holomorphic maps
from one-dimensional projective space to n-dimensional projective
space as constructed in his earlier work on blowups along
arrangements of subvarieties.

This proposal deals with the fruitful interaction between
topology and algebraic geometry. Algebraic Geometry as a field
is both old and new. It is old because of its long history,
it is new because it is still vigorously developing as one of
the main stream mathematics. It has numerous beautiful connections
and applications to other subjects. Roughly speaking, Algebraic Geometry studies spaces which are locally the set of solutions
of some polynomial equations. Topology is another amazing
mathematical achievement of this century and is the study of
flexible geometrical properties of spaces. One of central
problems in algebraic geometry is the classification of spaces
in algebraic geometry. A key idea here is to treat every type of
spaces as a point in a "master set" which is technically called
a moduli space. This paper focus on the topological and
geometrical aspects of moduli spaces. The proposal consists
of some new ideas and methods which are substantially based
upon investigator's earlier papers, among others.